Interstellar Scattering in Radio Astronomy

9414144 Rickett Drs. Rickett and Coles will study the scattering of radiowavelength radiation as it passes through the interstellar plasma. The motivation for the research is twofold: first to understand the scattering and so predict the distorting effects of interstellar wave propagation for radio astronomers; second to record the distortions and scattering and to interpret them as a way of studying the distant ionized interstellar medium. In the first case the scattering causes a galactic seeing problem for radio astronomers; in the second case the details of the scattering provide a signal which can be used to remotely probe the characteristics of the very diffuse interstellar plasma.